Engineering Research Equipment Grant: A Low-Pressure Chemical-Vapor-Deposition (LPCVD) Research System

A Thermco low-pressure chemical-vapor-deposition (LPCVD) system capable of depositing thin films of good-quality polysilicon and low-temperature silicon-dioxide will be purchased. This system is desirable because of the rapidly increasing number of applications of thin-film LPCVD polysilicon in silicon integrated circuit technology, and because of the emphasis on LPCVD polysilicon applications in current and anticipated research.